Research Initiation Award: Performance Analysis of Multistage Asynchronous Transfer Mode (ATM) Multiplexers

9309475 Lam This research will carry out queuing and delay analysis when a number of traffic streams are multiplexed in several stages. The first step will be to model the output process from a single first stage asynchronous transfer mode (ATM) multiplexer. Various models will be considered. Based on these models, performance measures will be investigated including cell loss probability, delay and delay jitter experienced in multistage multiplexing. The aim is to derive algorithms and deterministic or stochastic bounds for these performance measures. Both exact and asymptotic methods will be used. The performance of multiplexing traffic streams in several stages will be compared to the results obtained using a single giant (one stage) multiplexer. This research is of considerable importance in the formulation of requirements for Broadband Integrated Digital Networks (BISDN) equipment since cell loss or cell delay must be at a level acceptable from network performance and service perspectives.